Nonlinear Feedback-Control Systems

The project is concerned with the continuation of the author's research efforts toward the development of a general theory for the design of nonlinear feedback control systems. Such a theory would be highly instrumental for the design of modern control systems for industrial robots and production equipment, for flight control systems, space vehicles, missile control systems, tracking devices, and many other applications in modern engineering.